Studies on Cores of Ideals and Blowup Algebras

This project is concerned with problems from commutative
algebra and its interactions with computational algebra and
algebraic geometry. The focus of the proposal is on the theory of
blowup algebras. These algebras appear naturally in many
constructions both in algebra and geometry. For example they arise
in the process of resolution of singularities. An essential tool in
their study is the concept of reduction of an ideal. Several key
invariants emerge in this context such as the reduction number,
which among other things controls the Cohen-Macaulay property of
blowup algebras. To study all reductions at once one considers the
core of an ideal, defined as the intersection of these reductions.
This object, related to coefficient, adjoint and multiplier ideals,
plays a crucial role in Brian\c{c}on-Skoda type theorems. A main
thrust of this proposal is to give a combinatorial description of
the core of monomials ideals, to clarify the connection of the core
with the reduction number, the first coefficient ideal and the
adjoint or multiplier ideal, to investigate the core in arbitrary
characteristic and to establish formulas that were previously known
only in characteristic zero. In addition, the project also studies
other areas such as integral closures of ideals. The concepts of
integral extensions and integral closures of rings and ideals are
central to much of commutative algebra. One of the goals of the
project is to find a priori measures for the complexity of computing
integral closures.

Often real life problems involve many unknown parameters that are
related by equations which are impossible to solve exactly.
Nevertheless, using commutative algebra methods, much valuable
descriptive information can be gained about the potential sets of
solutions, if not the exact solutions themselves. Commutative
algebra has seen a great deal of activity and success over the past
two decades with the solution of important conjectures, its
application to diverse fields such as computer science,
cryptography, coding theory, robotics, pattern recognition and
theoretical physics, and the discovery of unexpected connections to
other parts of mathematics, ranging from topology to combinatorics
and from computer algebra to statistics.